Continuing Experiments on the Chemical Kinetics of Ore-And Rock-Forming Minerals in Hydrothermal Systems

This project will continue research on the dissolution kinetics of minerals in hydrothermal solutions for the following systems to temperatures of up to 350oC: calcite and aragonite (near completion); fluorite (near completion); magnetic and hematite (in progress); albite (recently begun); and the sulfate minerals barite, celestite and anglesite (new studies). We are also studying the effect dissolved salts and organic compounds have on dissolution rates of quartz, fluorite, aragonite, calcite and albite. The effect of strain and mineral defect densities on dissolution rate is being measured for calcite currently, and will be expanded to include quartz, fluorite and albite. This work applies to the genesis of hydrothermal ores and mineral deposits, to late diagenesis, and mineral alteration processes.